Developing STEM Teachers for High-Need Schools to Support the Implementation of Computer Science Standards

This Noyce Track 1 project aims to serve the national need of preparing highly-qualified STEM teachers. Additionally, this project will support twenty-one (21) computer science, mathematics, and/or science prospective teachers by offering a scholarship to attend the state-approved teacher preparation program offered by the University of Rochester at no cost, as well as additional coursework and experiences to support the implementation of the state of New York Computer Science and Digital Fluency Learning Standards across the curriculum. Noyce scholars will also participate in a one-year virtual professional learning community to support their first year of teaching. The proposed project components will enable high-achieving prospective teachers to become mathematics, science and/or computer science teachers with expertise in inquiry-based and digitally-rich STEM teaching, as well as the capacity to meaningfully integrate key computer science content into their teaching.

This project at the University of Rochester includes partnerships with the College of Computing and Information Sciences at the Rochester Institute of Technology, East Irondequoit Central School District, and East High School within the Rochester City School District. Project goals include producing twenty-one (21) new highly-qualified teachers who are certified to teach mathematics, biology, chemistry, physics and/or earth science in grades 7-12 and/or computer science in grades K-12 in New York State, who will also earn a state-registered Advanced Certificate in Digitally-rich Teaching in K-12 schools, through a post-baccalaureate degree program for pre-service teachers; it is also expected that new knowledge will be generated about preparing teachers to incorporate computer science and digital fluency learning, especially as it relates to the New York State standards. This project will be iteratively evaluated. Evaluation of the project will be guided by the following evaluation questions: (a) To what extent is the program implemented with fidelity?; (b) How could the program be improved?; (c) To what extent are recruiting targets met?; (d) To what extent do program graduates meet the goals set for them? The results of this project will be disseminated to help enhance the field. This Track 1: Scholarships and Stipends project is supported through the Robert Noyce Teacher Scholarship Program (Noyce). The Noyce program supports talented STEM undergraduate majors and professionals to become effective K-12 STEM teachers and experienced, exemplary K-12 teachers to become STEM master teachers in high-need school districts. It also supports research on the effectiveness and retention of K-12 STEM teachers in high-need school districts.